Adaptive Sampling Designs in Network and Spatial Settings

The purpose of this research project is to develop new adaptive
sampling designs and inference methods for sampling in network and
spatially structured populations. Adaptive sampling designs are those
in which the procedure for selecting the sample can depend on values
of variables of interest observed during the survey. In spatial
settings, that can mean adaptively adding new units to the sample in
the vicinity of high or otherwise interesting observed values. In
network or graph settings, links can be adaptively followed from
interesting sample nodes to add new nodes to the sample. A variety of
new sampling procedures, together with design and model based
estimation methods, will be investigated in the study. A new,
flexible and versatile class of adaptive designs, termed ``active set
adaptive sampling,'' was found during the preliminary work toward this
project. Designs in this class have certain advantages over adaptive
cluster sampling and some of the traditional network sampling designs
in being more flexible, allowing for control of total sample size and
not requiring complete inclusion of connected components.
Design-unbiased estimates are possible with some of these designs,
providing inferences that are robust against assumptions about the
population. These designs lend themselves toward model-based
inferences as well and can be used in some situations to help ensure
that the assumptions for the model-based inferences are met. This
project will advance the theory and methodology of adaptive sampling
and in particular will fully investigate and develop several
categories of new adaptive sampling designs within this class and
develop and evaluate design and model based inference methods for use
with adaptive designs of all types.

With adaptive sampling designs, the study design can change in
response to the values and patterns observed during the study. For
example, in a study of an at-risk hidden human population, social
links from particularly high-risk individuals can be followed to add
more individuals to the sample; in a survey of an unevenly distributed
natural resource, new observations may be adaptively made in
neighborhoods of high observed abundance. In previous work it has
been established that in many situations the theoretically optimal
sampling strategy is an adaptive one. Specific adaptive designs, such
as the adaptive cluster sampling designs developed in a previous
project, have been shown to give substantial gains in precision or
efficiency over conventional strategies for certain types of
populations, in particular rare, clustered ones. The results of the
proposed research will provide research tools for other scientific
fields, including the biological, environmental, health, and social
sciences. Each of these fields has to deal with populations that are
difficult to sample by conventional means because of their
unpredictably uneven spatial and network structures. The sampling
methods resulting from this project have applications to many
situations of importance to society, including studies of hidden
populations such as those at risk for HIV/AIDS, environmental
assessment and monitoring, biological surveys, natural resources
explorations and inventories, Internet surveys, rapid response to
natural and induced health threats, studies in human social behavior,
and archaeological studies.